SBIR Phase I: Off-the-Shelf immuno-compatible cell therapies

The broader impact of this Small Business Innovation Research (SBIR) Phase I project is to improve cell therapy by enabling the rapid development of novel and safe therapies through the seamless production of pre-characterized, good manufacturing practice (GMP) grade, universally immune-compatible induced pluripotent stem cell (iPSC) cell lines. The solution will target the global cell therapy market, expected to be the fastest-growing sector in the regenerative medicine industry and reaching $9.8 B by 2026. This project will advance a technology for better clinical trials.

This Small Business Innovation Research (SBIR) Phase I project explores feasibility of a platform for the generation of completely immune-compatible Off-The-Shelf cell therapies. The platform employs a fully scalable workflow centered on master induced pluripotent cell lines engineered for universal immune-compatibility. Cells are further functionalized by site-specific insertion of bacterial integrase receiver sites enabling safe and reliable insertion of new DNA constructs into defined genomic loci with low risk for off-target events. This approach will produce immune-compatible iPSC Receiver Cells that can be differentiated into many different mature cell types for use in cell therapy applications. The proposed activities will validate a new approach to prevent host-versus-grafts rejections based on the disruption of chaperone proteins that impair major histocompatibility complex (MHC)-1 function without eliminating MHC-1 cell-surface expression. Several iPSC cell lines will be generated and tested in vitro and in vivo to investigate the efficacy of the proposed method to prevent HLA-dependent cytotoxic T cell “non-self” and NK cell “missing-self” responses. The ability of the generated iPSC to generate differentiated immune-compatible cell lines will be assessed, validating the entire workflow of the proposed platform.